History of Mathematics Applications Project

Large numbers of students take mathematics courses in high school yet leave high school without an understanding of how mathematics is affecting their lives (e.g., CAT scans, compact disc recorders, cryptological protection of banking transactions, etc.) Mathematics is too frequently taught in a void, outside of any personal or historical context. Fortunately, new development in mathematics and mathematics education provide an opportunity to make constructive changes in the content and context of how mathematics is taught in high school This approach involves stressing applications of mathematics at all stages of the curriculum, and emphasizing a historical approach to see how mathematical concepts and applications evolved. Exciting and important examples abound: Euler's work on graph theory laid the foundations for modern applications to operations research, spurred by the exigencies of World War II; the work of Malthus and Volterra on population growth led to mathematical models now being applied to critical environmental and ecological problems. The primary goal of this project is the development of a series of student-ready modules that use a historical framework to study a variety of recent significant areas of applicability (optimization, voting, growth, cryptology, etc.). Over the grant period, the COMAP staff will produce six modules in both student and teacher versions and a fifteen-minute video segment. COMAP will dedicate its efforts, through its network of over 20,000 high school mathematics teachers, to ensure widespread dissemination of the materials.